Interacting Atoms in Optical Lattices

This project consists of a series of experiments to study interacting cold atoms in far-off-resonant optical lattices (FORLs). In one experiment the three-dimensional FORL will be adiabatically altered into a two-dimensional FORL to achieve effective one-dimensional collisional behavior that has been predicted to lead to a Tonks' gas. Other experiments include continued efforts to achieve Bose condensation in a fully optical trap and atom interferometry experiments in the three-dimensional FORL.